Cosmic Rays and the Interplanetary Magnetic Field

This project will: (1) develop new methods for studying the acceleration and transport of solar energetic particles based upon detailed analysis of particle angular distributions; (2) characterize and understand transient anisotropies accompanying cosmic ray transient variations; (3) develop new methods to determine the geometry of interplanetary magnetic turbulence based upon measurements of magnetic field and charged particle fluctuations; (4) improve understanding of particle scattering by turbulence, ultimately aimed to achieve a useful predictive capability where particle mean free paths can be deduced from measurable properties of the turbulence; (5) evaluate the usefulness of cosmic rays as a space weather tool for remote sensing the properties of approaching solar wind disturbances; and (6) improve knowledge of geomagnetic cutoffs and charged particle motion in Earth's magnetosphere through detailed testing of model predictions against ground-based observations.